Radon Transforms and Geometric Analysis and Tomography

Abstract

Award: DMS-9971828
Principal Investigator: Eric L. Grinberg

The P.I. will continue to study problems of analysis and geometry
on homogeneous and non-homogeneous spaces. He will use techniques
of group representations when these are available, and microlocal
analysis along with integral transforms, and their
generalizations to not-necessarily homogeneous spaces. A major
focus of his program will include Radon transforms on symmetric
spaces, especially their injectivity and restriction
properties. He will use symmetric spaces as a guide to analysis
on spaces with less regularity. He will also investigate
problems in geometric inequalities and also several complex
variables using ideas closely related to, but formally distinct
from Radon transforms. Finally, he will consider orbitfold
analogs of Radon transforms (or Radon transforms modulo finite
groups) by means of invariant polynomials and enumeration
arguments. He will continue an active program of travel and
seminar visitors that has had a significant impact on the
scientific community in North Philadelphia.

Imaging devices are used with increasing frequency in medicine,
industry, science, and information technology. While engineering,
computational, and ergonomic considerations are critical in the
design, production and utilization of these devices, the
foundational operating principle is generally
mathematical. Typically, a mathematical theorem says that
information may be recovered from a geometrically defined
integral transformation or partial differential equation. The
Radon transform played a critical role in A.Cormack's pioneering
work on the CAT scanner. Today, this transform and its
generalizations play a unifying role in an expanding set of
branches of mathematics. The P.I. will focus on the following
areas: 1) geometric inequalities, which relate properties like
volume, width, cross-sections shadow areas; 2) functions of
several complex variables, which may be viewed as data with great
regularity and which play an important role in mathematical
analysis and physics; 3) homogeneous spaces, where the existence
of a great deal of symmetry is assumed and its exploitation is
the ultimate goal; 4) finite analogs, where the continuous
harmonic analysis of smooth spaces is replaced by counting
arguments involving finite and discrete sets